Structure and Function of Prolactin Releasing Factor

Prolactin is a pituitary hormone that is involved in multiple functions, including reproduction, immune regulation, and growth and the development of the young. The synthesis and secretion of prolactin are regulated by a complex interaction between releasing and inhibiting factors and gonadal steroid hormones. These investigators have discovered the presence of prolactin releasing factors (PRFs) in the posterior pituitaries of all species that they have examined, including humans. PRF increases the expression of the prolactin gene and is critical for stimulating prolactin release during lactation, the ovulatory cycle and in response to estradiol. To further evaluate the physiological importance, tissue distribution and mechanisms of action of PRFs, it is critical to determine its chemical structure and generate a synthetic peptide. The research to be done is to purify PRF from pituitary tumors of transgenic mice and to determine its primary structure. Following that PRF will be synthesized and its biological activity will be determined using both cultured cells and in vivo assays. The results of this investigation will extend our understanding of the mechanisms which govern the synthesis and release of a major pituitary hormone that participates in a broad range of important functions.